Reactive Polymers: Applications in Organic Synthesis

9406891 Schore The focus of this research is to investigate metal-catalyzed coupling of dissimilar terminal alkynes and metal-catalyzed cocyclotrimerizations using polymer-linked substrates. The study of polymer-derived chemoselectivity control in polar and pericyclic reactions and the application of polymer methodology to free radical organic reactions will also be undertaken. %%% With this renewal award, the Synthetic Organic Program is supporting the research of Dr. Neil E. Schore and Dr. Mark J. Kurth of the Department of Chemistry at the University of Califrnia, Davis. The two investigators will focus their work on developing methodologies to prepare and evaluate reactive polymer systems for use in organic synthesis.